Computational Models of Uncertainty Management and Decision Making

A Complete approach to uncertainty management requires support for interactive and incremental problem formulation, inference, hypothesis ranking, and decision making. Current approaches concentrate primarily on inference, and provide little or no support for the larger issues in reasoning under uncertainty. This proposal presents a plan for research into the use of multiple representations of uncertainty as the basis of a complete computational foundation for resource.bounded reasoning and decision.making under uncertainty. The research is organized into two phases. The first phase is continued development of a combined symbolic/numeric representation for small.scale problem model formulation and evaluation. This framework provides basic capabilities to support incremental model construction, evaluation, and revision, but does not address issues of resource bounding which become critical in reasoning with large.scale models. A second phase of the proposed research will address problems which are intractable for the small.scale model approach, by developing representations and evaluation strategies for decomposing a large.scale model into a set of small.scale models.